CISE Instrumentation Research: High Resolution Video Processing System

Video display and recording equipment shall be purchased to augment existing research equipment in order to allow simulation of the effects of various algorithms and errors on the quality of digital video sequences under realistic viewing conditions. Particular projects include: * Compression of video data. * Restoration and enhancement of video data through nonlinear and nonstationary filtering. * Visual communication system channel error effect compensation.